Equipment for a Workstation Laboratory

The Department of Electrical Engineering and Computer Science at the University of Illinois at Chicago plans to acquire six workstations and a disk server to expand a research laboratory that was recently established. This laboratory will support experimentation in distributed query processing, fault-tolerant database systems, automatic database design, and computer graphics. All the planned research is fundamentally experimental in nature. It requires a multiple node network which is separate from the general computing facilities in the department, and provides special resources needed by each investigator. The network will be shared by four research groups, but will also be partitionable so that certain experiments can be performed by one group without affecting other groups environment.